ITR: Design Conformant Software

The proposed research will investigate new software engineering
techniques and tools for infrastructural software that will improve
its reliability, safety, and predictability. The key idea is to use
abstract design models to drive new static analyses that check that
the software correctly implements its design (and if not, identify the
source of the problem). To ensure that our research addresses the
important issues that developers face in the field, we will conduct
our research in the context of the development of an air traffic
control system component. Specifically, the research will investigate
the use of object models to express important design properties and
new pointer analysis algorithms to verify that the code correctly
implements the object models. Object models describe essential object
in the heap and the relationships between them; pointer analysis
automatically analyzes code to extract information about how objects
refer to each other. The research will investigate techniques that
improve the precision of the pointer analysis by using the object
model to focus the analysis on the properties of interest.